ARFMP: Renovation of Chemistry Research Laboratories

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to Mount Holyoke College for the renovation and repair of Carr Laboratory which houses that institution's polymer chemistry, physical organic chemistry, biophysical chemistry, and enzyme mechanisms and nuclear magnetic resonance spectroscopy research and research training activities. This building was constructed in 1954 and has not been renovated since that time. The ARFMP grant of $100,000 and $100,000 provided by the grantee as cost sharing will be used to modernize these research and research training facilities. This project will address the need to improve the research infrastructure by bringing the laboratory benches, cabinets, sinks, and fume hoods up to modern standards and by making the bench tops chemically resistant and level once again. The proposed renovation will have a clear and significant impact on the quality, quantity, and diversity of research and research training pursued at Mount Holyoke. This award contributes to the infrastructure of science by providing an improved environment for the conduct of research and for the training of quality undergraduate students. Mount Holyoke is regarded as the leading producer in the United States of women chemists who go on to earn the Ph.D. degree. This renovation will allow Mount Holyoke College to maintain its long tradition of preparing some of the most talented young women in the country for careers in chemistry and related sciences.